Structural Estimation Algorithms for Dynamic Choice and Equilibrium Models

This award is for continued research on the development and application of computational methods for estimating microeconomic decision models. Under the previous grant the investigator has made significant contributions to the development of computational methods and has produced several useful applications. He has also produced several computer programs which have proved valuable to other researchers working on related issues. The project will pursue a number of different, but related topics. Among these are: (1) Empirical applications and software implementation of estimation algorithms for dynamic choice and equilibrium models; (2) Extending the algorithms to handle continuous choice variables; (3) The development of algorithms for estimating general equilibrium models. This research is important because it will contribute to a deeper understanding of microeconomic decision process, as well as pointing toward new directions for estimating general equilibrium models.